Information-Theoretic Analysis of Cascaded Communication Channels

This research examines the problem of maximizing the total information transfer when data are transmitted through a series of noisy channels. This is a common situation in communication networks. The key information-theoretic fact is that the overall capacity is strongly dependent on the order in which the individual channels are arranged. A number of interesting and tractable problems are formulated and investigated; some counter-intuitive results are suggested and will be evaluated.